Collaborative Research: Instrument Development: Modular Flow Synthesis of Hyperpolarized Biomolecules

Nuclear Magnetic Resonance (NMR) spectroscopy will be advanced in this project to address its major limitation—low detection sensitivity—by developing a platform for hyperpolarization, which creates a non-equilibrium nuclear spin magnetization. The proposed instrumentation and methods will enable on-demand continuous flow synthesis of hyperpolarized biomolecules, overcoming constraints of existing batch approaches and allowing sustained spectroscopy and imaging with greatly enhanced sensitivity. These capabilities could support earlier disease detection and improved monitoring of disorders such as cancer that involve altered metabolism. The resulting technology could accelerate the translation of hyperpolarized MRI into clinical and industrial settings and would have potential impact in biotechnology by enabling advanced metabolic imaging, rapid biochemical analysis, and real-time monitoring of cellular processes. The project will contribute to education and workforce development through interdisciplinary training of high school, undergraduate, and graduate students in science and engineering.

Technically, the project will develop a continuous-flow parahydrogen-induced polarization (PHIP) platform integrating three modules: continuous-flow hydrogenation of 13C-labeled precursors, efficient spin-order transfer (SOT) to generate hyperpolarized 13C signals, and rapid membrane-based extraction into aqueous media. The modular design will allow independent optimization to maximize polarization flux and system performance. The research will evaluate both homogeneous catalysts and separable heterogeneous systems, including metal–organic framework (MOF)-confined complexes and silica-encapsulated intermetallic nanoparticles. Density matrix simulations will guide optimization of spin conversion efficiency and operating conditions. By mitigating polarization loss from spin relaxation and enabling steady-state operation, the platform could support extended imaging times and metabolite detection at near-physiological concentrations, establishing new capabilities for hyperpolarized metabolic MRI and related applications.